Interactions in Adsorbed Layers Studied with Infrared Spectroscopy

A quantitative study of the low frequency absorbate-substrate vibrations will be undertaken using new far infrared (FIR) spectroscopic techniques developed at Michigan State Univeristy (MSU). Both the metastable molecular precursor and the stable atomic species will be examined. Absorbate-induced changes in the broad band reflectivity of the substrate will be studied quantitatively using the MSU apparatus and FIR beamline at the National Synchrotron Light Source. Line shapes of the low frequency modes, the effect of coadsorbed alkali atoms, and atomic adsorption on semiconductor surfaces will also be investigated. Electroreflectance vibrational spectroscopy will be used to probe the subtle effects of applied electrostatic fields.